Research in High Energy Theoretical Physics

This project continues first principles studies of quantum
chromodynamics (the theory of the strong interactions) through the use
of high performance computer simulations. Emphasis is to be placed on
using improved algorithms to extract the most precise values to date
of key numbers in the Standard Model of the fundamental interactions
in Nature. Results to be obtained are essential for analyzing
experimental measurements at national accelerator laboratories and to
test the internal consistency of the Model. They may lead to clues
about more fundamental interactions. They will also be used to
continue studies of the high temperature phase transition between
confined matter and the quark-gluon plasma and of the strange quark
content of the plasma. Such a phase transition occurred in the
evolution of the early Universe and is thought to be achievable in the
laboratory in collisions of heavy ions at the RHIC accelerator, which
recently began operation at the Brookhaven National Laboratory.

These studies are important for extending our understanding of the
most fundamental basis of our physical world and of the origins of our
Universe. Algorithmic ideas are likely to have applications in other
computational fields.